Studies of High Energy Phenomena Using Muons

The primary activity of the Northern Illinois University (NIU) experimental
elementary particle physics research program is the exploration of the
sub-microscopic world with the DZERO detector. The detector, constructed and
operated by a 500-member international collaboration and located at the
Fermilab National Accelerator Laboratory, is a large, general-purpose device
designed to observe and study proton-antiproton collisions produced at the
Tevatron. The Tevatron is the world's highest energy accelerator. Presently the group is involved in preparation for the second 5-year data collection period of DZERO, and has responsibility for the construction and operation of a muon particle detector, muon triggering, and muon reconstruction software. The group also has overall responsibility for the full DZERO triggering and data acquisition systems. The NIU group will focus on continued searches for new forms of matter, such as the Higgs particle, which is thought to give mass to all other particles, and supersymmetry, which postulates heavy partners to all already discovered particles.

Over the past decades advances in particle physics have resulted in the
construction and confirmation of the Standard Model which describes in great
detail and accuracy the interactions of the fundamental particles. The
theory is incomplete and there are hints that new forces and particles are
required to fully describe the microscopic world. In particular the numbers
of particles and the origins of their mass are great mysteries. The second
run of the DZERO detector will offer an opportunity to discover the
mechanism that lends mass to particles and an over-arching theory that
unifies the description of the microscopic world. This run will exploit the
improvements to Fermilab's accelerator complex which have recently been
completed, allowing significantly more sensitive searches to be made. At a
more immediate level, over the past decade the ongoing NIU particle physics
program has offered research experiences to more than 100 undergraduates and
Master's students. These graduates have accepted employment with
technological firms, the financial industry, governmental agencies, and
academic institutions. A great number of the students have become high
school physics instructors. The NSF sponsored program will continue to
offer opportunities and support to these students as well as PhD students
admitted into the new NIU physics doctoral program.